Providing Academic, Finanical and Social Support to Computer Science Majors to Improve Retention to the Bachelor's or Master's Degree

The St. Ambrose University CSEMS Program provides 30 low-income or
disadvantaged computer and information science majors the financial, academic, social, and peer
support they need to persist to graduation. We offer four eligible majors: bachelor's degrees in
computer science (CS), computer and information science (CIS), and computer network
administration (CNA) and a new master's degree in information technology management (ITM).
Students are selected based on financial need and academic promise. Students selected for the CSEMS program will receive the following support: enrollment in learning communities (for first year students); assignment to peer, professional and faculty mentors; monthly professional seminars (e.g., college transition for entering students, career planning and placement for upper level students); and academic support (tutoring). Upper-level students will participate in job shadowing and either an internship or practicum to get on-the-job experience and for career preparation.